The Influence of Ion Beam Surface Microalloying on the Cyclic Deformation of Nickel-Aluminum Alloys

The objective of this research program is to investigate the influence of ion beam modification on the cyclic deformation behavior and resulting near-surface damage accumulation processes which lead to fatigue crack initiation in Ni-Al alloys. Materials ranging from pure nickel single crystals to the Ni3Al nickel-aluminum intermetallic compound are being ion implanted (for alloying or ion beam mixing) and the materials are being characterized using Rutherford backscattering, ion channeling, and transmission electron microscopy. Mechanical property studies will include analyses of surface residual stresses and hardness, surface damage accumulation as a function of plastic strain, and fatigue crack initiation.